The Panulirus Hydrographic Station at Station 'S'

The 37 year oceanographic time series at the "Panulirus" hydrographic station at station S, southeast of Bermuda will be extended for another five years. The data gathered, calibrated, archived at the Bermuda Biological Station for Research is available to the scientific community for studies of long-term changes in oceanic climate.